ITR: Environment-Aware Communication for Mobile Grouped Devices

Advances in processor technology, both in increased processing power and decreased energy
consumption, have led to the creation of a new breed of small intelligent devices from tiny
laptops, to PDAs, to smart phones, to wearable computers made from a collection of small
independent devices. The advent of such devices and wearable computers brings to light new
possibilities and new needs, specifically: cooperation among devices and elimination of cables.
The development of short-range radio technology, such as Bluetooth, enables the cooperation of
such devices over wireless links. As users collect multiple small computing devices, the amount
of communication resources available to the user increases and so the demand for coordination of
resources between these devices increases. The overhead of this coordination may tax the
available bandwidth and energy resources of the devices. The goal of this research is to support
such cooperation and coordination through intelligent communication management with an
emphasis on the efficient use of available resources.

As the user moves between different environments, these MObile grouPEd Devices (MOPEDs)
cooperate as a coordinated local area network that provides the user the desired mobile services.
This cooperation and coordination between a single user's devices changes the definition of what
it means to communicate with a user. With a MOPED, communicating with any of the devices in
the MOPED represents a successful connection to the local area network, and so to the individual.
In order to better support the needs of the user, the MOPED may interact with networks in the
current environment surrounding the user in order to determine the availability of local services.

The researchers' approach relies on decision algorithms; services and protocols for determining what communication channels are available to which devices, as well as resource and quality
information about such channels. The researchers address four major challenges faced in the design of such a solution.

1) Channel Discovery: The researchers propose the design of intelligent service discovery protocols based on the requirements of the user and the tradeoff between having current
information about the availability of communication channels with the overhead in
resources (i.e. bandwidth and power) used to acquire that information.
2) Resource Monitoring: The researchers propose the design of a distributed resource information
repository, which is a database internal to the MOPED. The algorithms governing the
dissemination of resource information to devices in the MOPED must take into
consideration the topology of the network, the energy and bandwidth availability of each
device, and the priority at which each device actually needs the information.
3) Resource Allocation: The researchers propose the design of intelligent transport and routing
protocols able to use the resource availability information to determine which and how
many of the MOPED's external channels to use to complete a specific connection.
4) Mobility Management: The researchers propose mobility management techniques to provide the ability for external users to communicate with the user, and so the devices of the
MOPED, wherever it is currently connected to the Internet and propose the design of
mobility management protocols based on the current technology for host mobility.

The results of the research will enable simultaneous connections through all available
communication channels. This creates a very robust environment, where it becomes easier to
guarantee complete communication coverage. It allows using MOPEDs for critical tasks such as
patient monitoring where it is important to maintain connectivity at all time, through there may be
some flexibility in the amount of data that is transferred as well as the importance of that data. If
the communication patterns of such a MOPED are not well monitored, certain devices may
unacceptably lose power due to inefficient connection management.